Phylogenetic Analysis and Simulations on Massively Parallel Computers

This research is being conducted by Dr. David M. Hillis, a molecular biologist from the University of Texas. Dr. Hillis is well known for his studies relating to DNA sequence analysis. The current research is a natural extension of Dr. Hillis' past work and represents a major innovation, linking the utilization of parallel computers with a need for the development of more efficient software for analyzing the increasing amount of nucleotide sequence data. Software for DNA sequence analysis is being modified and developed for massively parallel computers in an effort to increase computation speed and enhance the assessment of available computer algorithms. Supercomputer manufacturers are currently emphasizing massively parallel architecture, and even smaller highly parallel computers are under production and/or developed. The development of software for biological analysis will contribute to both the scientific community and the newly emerging parallel computer industry.